CRB: Migratory Behavior of the Olive Ridley Sea Turtle

In collaboration with Costa Rican graduate students and scientists at two universities in Costa Rica, Dr. Owens will carry out a two-year field study of the behavioral factors influencing the migrations and unique nesting patterns of the olive ridley sea turtle. The olive ridley and the closely related Kemp's ridley have a distinctive nesting behavior in which thousands of turtles gather in nearshore waters at the nesting beach and then emerge en masse to lay their eggs. This mass nesting is commonly known by the Spanish word "arribada," but the physiological mechanisms and environmental cues involved are unknown. The olive ridley is a commercially important species threatened with extinction because it is under extreme exploitation pressure from fisheries between Mexico and Equador. Because of the lack of data on the at-sea behavior and movements of the olive ridley, any information collected will contribute significantly to our understanding of this animal. The objectives of this study are to (1) monitor the pre-nesting and post-nesting at-sea movements and diving characteristics of the olive ridley and (2) determine the behavioral components involved in arribada mating and massing. These data will then be combined with information on the physiology of the same turtles, being obtained under grant BNS 88-19940. Dr. Owens and his colleagues will attach satellite-tracking transmitters to female and male olive ridleys to follow their movements. Both behavior in the vicinity of the nesting beach and long-term migrations away from the nesting beach to the feeding grounds will be studied. Monitoring these movements will allow the researchers to evaluate feeding, courtship, mating, and massing behaviors prior to and following arribada events. An improved understanding of the factors regulating the mass nesting and migratory behaviors has basic importance in marine zoology and potential value in developing improved methods for conserving this commercially exploited species.